Research Experiences for Undergraduates in Chemistry at Bowling Green State University

This Research Experiences for Undergraduates (REU) Site project is in the area of chemistry. For three summers beginning April 1992, twelve undergraduate students will spend ten weeks engaged in research in the chemical sciences. The focus of some of the research projects are programs at the academic/ industrial interface. Some students will be guided in their work by mentors permanently employed in industry. Others will be given the opportunity to meet industrial scientists in their research setting, to discuss careers in chemistry with them, and to learn about the role chemical research plays in industrial development.